Terahertz Microwave Generation in dc-Biased Heterostructure Ballistic Devices

This proposal combines an experimental program intended to fabricate proof-of-concept solid-state THz sources and evaluate their technological promise (in terms of real-world benchmarks, such as power output over the attainable freqcuency range). together with a theoretical effort intended to clarity the high-frequency generation mechanisms and guide the experimental work among different device geometries. This proposal will complete the envisioned program fully with regard to fabricating and characterizing proof-or-concept devices and developing the theoretical framework.